Mathematical Sciences: Dynamical Systems

Professor Johnson will study questions of rigidity and the existence of certain anomalous behaviors in the class of unimodal maps with a negative Schwarzian derivative and a nondegenerate critical point. He will work on the question of whether if two maps in this class are conjugate then they are quasi-symmetrically conjugate and whether von Neumann's type III can occur in this class. He will also study topological and measure theoretic dependence on parameter values. Professor Johnson's project concerns a very elementary dynamical system where, surprisingly, there is still much that is unknown. He will study a function on the unit interval of the real line into itself and its iterations as a model of more complicated dynamical systems. His main interest is in classifying these functions. Here two are considered in the same class when a stretching and shrinking of parts of the interval (keeping the length constant) brings one map to the other. His research will add to our knowledge about this elementary but important dynamical system.